CAREER: Design, Modeling, and Control of High Performance Communication Networks

The objective of this project is to advance theory and practice in the design, modeling and control of high performance communication networks. The scope of the project encompasses system-level issues in high-speed wireline networks, and interconnecting of wireline/wireless networks. The research component of the project will be directed in three focus areas: (1) switch architectures and control algorithms for high speed networks; (2) mobility, connectivity and control of wireless networks; and (3) network modeling and simulation methodologies. Our proposed program of research in these areas is expected to make significant contributions to the design, modeling and control of large-scale, high-speed, heterogeneous communication networks. Research and education will be integrated through the following activities: (1) supervision of graduate and undergraduate research projects; (2) co-authoring of a graduate level two-volume textbook on modeling and analysis of high performance networks; (3) teaching of undergraduate and graduate level courses in the area of communication networks; and (4) development and maintenance of an up-to-date data networking laboratory that will provide students with hands-on experience in the operation and configuration of modern networks.